Diophantine Approximation and Arithmetic of Polynomials

The Proposer intends to work on a number of diophantine questions, with
particular emphasis on mixed polynomial-exponential type equations in
several variables, and on Diophantine approximation in positive
characteristic. For polynomial-exponential equations, the goal will be
to obtain bounds for the number of solutions, which are independent of
the coefficients of the equations. As for approximation in fields of
power series of positive characteristic, the aim will be to exhibit new
classes of algebraic series with explicit continued fraction expansions,
and to obtain new information on "Roth exponents". The Proposer
further plans to address the question (connected with a former conjecture
of Artin) of how many variables are needed to guarantee that a form of
degree d with p-adic coefficients has a nontrivial zero, and he is
interested in a certain question on polynomials with applications to
Sidon sequences.

With the advent of computers, and in modern cryptography, ``discrete''
mathematical questions, in particular questions involving integers, have
turned out to be of increasing importance. The Proposer intends to
continue his work on "Diophantine equations", i.e., to study integer
solutions of equations. Whereas most work up to now has been on
polynomial equations, the new project will also involve exponential
equations, involving terms with ``exponentially fast'' growth. There
will be applications to linear recurrence sequences, of which the best
known is the Fibonacci sequence, which occurs, e.g., as data relating to
some plants. The approximation of more complicated numbers by the more simple
"rational numbers" (i.e., ordinary fractions) is at the forefront of
much current work. For instance, how well can the number "pi" be
approximated? The Proposer intends to work on the analogous question, on
how well a more general function can be approximated by the simpler
rational functions. Again of particular interest here is the discrete
(positive characteristic) case.